Transforming 3D Space with Virtual Reality Modeling Language

This project is using Virtual Reality Modeling Language (VRML), a three dimensional extelsion to the World Wide Web, to incorporate 3D visualization into two courses offered by Indiana University of Pennsylvania's Mathematics Department. In the departments' "Introduction to Linear Algebra" course, students are using VRML to explore the relationships between matrices and linear transformation. While traditional introductory linear algebra courses emphasize applications to solving systems of linear equations, this project is augmenting the traditional materials by incorporating linear transformations throughout the course. Students are using VRML visualizations to understand basic linear algebra concepts and to apply linear algebra concepts to applied problems. In a new liberal studies course entitled "Building 3D Models for the Web", students from various majors are learning to use 3D coordinate systems and linear transformations to build 3D models related to their disciplines. Students collaborate in interdisciplinary teams to create major VRML projects. The teams are publishing results on the Web and are making oral presentations to the university community. The project is affecting large number of preservice secondary school mathematics teachers as approximately 75% of the mathematics majors plan to teach. *